Wavelength Division Multiplexing in Soliton Communications

Proposal Number: ECS-9800152 Principal Investigator: Mark J. Ablowitz Title: Wavelength Division Multiplexing in Soliton Communications Abstract The proposed research is aimed at analytic and numerical studies of the wavelength division multiplexed soliton communication systems. The issues to be addressed and analyzed include four-wave interactions and associated resonant instabilities; collision induced time jitter; soliton controllability via frequency filters and dispersion management; systems implications of these effects and relevant additional perturbation effects. Soliton communication has been recognized as a viable technique for high-speed very long distance transmission using optical fibers. But, until the above mentioned issues are resolved, the commercial utilization of the potential advantage of soliton transmission cannot be realized.